Digital Government: Representation and Distribution of Geospatial Knowledge

EIA-9983267
Malyankar, Raphael M.
Arizona State University

Digital Government: Representation and Distribution of Geospatial Knowledge

This project will work within the domain of maritime navigation, in partnership primarily with the Coast Guard, but with contacts to NOAA, NIMA, and the Navy. The ontology developed will include such representations as shorelines, hazards, aids to navigation, tide tables, sea lanes, etc. and a related markup language. This will be of benefit as these agencies begin to deploy web-based Q&A systems and automated mission planning, intelligent navigation aids, and route planning tools. The research challenges in this work revolve around representing a domain that is highly dynamic, time-critical and rich in factors and entities.